Diversity and Classification of the poorly known Algal Class Eustigmatophyceae

The Eustigmatophyceae are a little-known group of microalgae in a lineage that includes the more familiar diatoms and kelps. Recent culture studies have revealed that the Eustigmatophyceae are much more common and diverse than previously thought. DNA sequence analyses from these strains and named Eustigmatophyceae have shown that the existing morphologically-based taxonomy of the class is flawed. In collaboration with scientists in Prague, Czech Republic, this project will characterize new Eustigmatophyceae strains with the goals of 1) description of new genera and species; and 2) a revision of the higher-level classification of the Eustigmatophyceae. A multi-faceted approach using analyses of morphology, life history, pigments, and DNA sequence data will be used to achieve these goals. Criteria for the identification of species, genera, and families will be identified.

The Eustigmatophyceae have significant potential for the biofuels industry, a current National priority. Moreover, some species have high levels of omega fatty acids and could be used to produce these lipids as nutritional supplements. Understanding the diversity of the Eustigmatophyceae should positively impact the practical use of these algae. The project will also significantly impact undergraduate training at UAM, a minority-serving institution of approximately 3900 students located in economically depressed southeast Arkansas.